Engineering Research Equipment Grant: Mass Spectrometer forStudies Using a Novel Chemical Trapping Technique

A medium resolution mass spectrometer with range up to 1200 atomic mass unit is being acquired. This instrument will be dedicated to studies of catalytic reactions using a chemical trapping technique and to tracking of isotopic labels in catalytic systems.